The Third Cary Conference, "Comparative Analyses of Ecosystems: Patterns, Mechanisms, and Theories"; Millbrook,NY; April 30 - May 3, 1989

The Institute of Ecosystem Studies (IES) will host an international conference on "Comparative analyses of ecosystems: patterns, mechanisms, and theories," on 20 April through 3 May, 1989. The subject of this conference will be quantitative analyses of important ecosystem phenomena across systems. The goals of the conference are: i) to encourage the application of comparative techniques to develop and test theories in ecosystem ecology, ii) to address methodological and philosophical difficulties in using a comparative approach, iii) to expose workers in one ecological subdiscipline to potentially useful ideas, data, and methods from other subdisciplines, and iv) to explore the potential and the limitations of cross- ecosystem comparisons. Approximately 45 ecologists from around the world will attend this conference. As in the previous two Cary Conferences, the emphasis of this meeting will be on discussion and critical examination of fundamental ideas in ecology. Speakers and other participants will be challenged to extend their thinking beyond the day-to-day limits of their own research fields. Such open and critical evaluation will help to stimulate the ecological community, and will encourage the integration of ideas and development of new research. The Ecosystem Studies Program recommends that an award be made in support of the third Cary Conference.